Inter-regional Connectivity Proposal for Pacific Internet Consortium (BARRNet, CSUnet, Los Nettos)

9321003 Yundt This award assists the Pacific Internet Consortium in obtaining connectivity to other regional networks and the rest of the Internet. The award, made under the guidelines published in NSF Program Solicitation 93-52, partially funds one T-3 (45 million bits per second) connection. Anticipated duration of the award is four years.